2nd International Earthquake Conference

This award provides partial support for the Second International Conference on Earthquake Mitigation and Preparedness. The conference is designed for researchers, policy makers and managers from the United States and overseas. Objectives are to provide a forum for researchers to present their findings to the user community and to receive input on future research needs; to provide a means of transferring theoretical seismic research to those who have the responsibility for implementation; to provide a setting for exchange of information among policy-makers and administrators; to increase public awareness and understanding of earthquake hazard and preparedness through public education programs and neighborhood "self-help" programs.